I/UCRC for Wireless Information Networks

This proposal is for a grant to establish a Industry/University Cooperative Research Center for Wireless Information Networks at Rutgers University. Wireless information services such as cordless telephone and cellular radio are technologically in their infancy. The aim of the research program at the Center is to overcome bottlenecks that restrict the growth and enhancement of wireless networking. The proposed systems research projects include; a) multiple access performance evaluation, b) object oriented systems integration in wireless networks, c) Dynamic spectrum reuse, d) optimization of the physical layer, and e) a wireless network testbed. The Program Manager recommends a continuing award of $50,000 each year for the next five years to Rutgers University for establishing a Center for Wireless Information Networks. Near the end of each 12 month period the Program Manager and/or the Director of the Engineering Centers Division will review the progress of the Center on a number of criteria, including the following: (1) the extent to which the university-industry interaction and collaboration is developing; (2) the extent to which the support base is expanding; (3) the extent to which a robust research program is developing. If the review is satisfactory, the Program Director will recommend support of the next period of this continuing grant.